Conformal Dynamics

DMS-0072312

The term conformal dynamics has recently gained some currency and is
meant to cover real and complex dynamics. This merging of sub-areas
makes sense because their methods are showing more overlap than ever.
The project suggests a variety of goals. The first is the study of
boundaries of connectedness loci for families of polynomials. This
generalizes the study of the boundary of the Mandelbrot set. Problems
include the metric structure of the boundary, including the boundary
behavior of the Riemann map of the complement and the distribution of
the harmonic measure. This part of the problem continues the on-going
work by J. Graczyk and the proposer. The second goal is the study of
boundaries of Siegel disks. The main problem in this area is deciding
whether such boundaries are Jordan curves. The proposed approach is
based on gaining information on the Riemann map of the Siegel disk by
means of a cohomological equation. The third problem is in real
dynamics and concerns the existence of wild attractors with additional
properties. The forth goal is to estimate the measure and Hausdorff
dimension of sets invariant under certain iterated function systems.

To understand the meaning of this research in the broad perspective of
science, one has first to realize the role played by one-dimensional,
or conformal, dynamics. Systems which appear as models in natural
sciences, such as physics, astronomy, meteorology, economics or
ecology, involve multiple parameters. However,
frequently one dominant parameter emerges
which controls long time-behavior of the system. In such a way the
logistic family appears in the study of many complicated systems. The
logistic maps are quadratic polynomials. It is useful to study them on
the complex plane, and thus complex quadratic polynomials enter the
picture. This is the first object of our study.
In other situations the system begins to show quasi-periodic
or ``rotational'' behavior. This is situation is modeled by Siegel
disks which are another subject of our proposed study. Wild
attractors, which are our third subject, refer to a very unusual
chaotic regime for a system in which two completely different limiting
modes of long-term behavior co-exist side by side. The attractor
for an iterated function system which we will also investigate appears
as a projection of a certain fractal set. This kind of problem appears
in applications where one often has a multi-dimensional fractal set
which can be studied by projections onto lower-dimensional spaces.